Permanent and Transient Refractive Index Gratings in Rare-Earth Activated Silicate Glasses

9705284 Dixon This is a new project on the physics of rare earth doped silicate glasses for the formation of permanent and transient refractive index gratings in rare-earth activated silicate glasses. These studies will help develop a pjysical basis for tailoring the photorefractive properties of these media for frequency-selective switches, holographic memories, distributed feedback lasers, and other applications in optical signal processing. Glasses are synthesized in-house and characterized for properties of grating strength and kinetics. These measurements are supported by theoretical studies and by experimental studies of the phonon physics and transport properties of the glasses. The PI's expect to demonstrate a prototype frequency-selective optical switch using transient gratings. Such a device is important in order to increase the capacity of optical communications networks. %%% This is a new project on the physics of rare earth doped silicate glasses for the formation of permanent and transient refractive index gratings in rare-earth activated silicate glasses. The capacity of fiber optical telephone networks can be greatly increased, without installing new cable, if messages carried by different light waves are transmitted simultaneously along the same fiber. To do this, it is essential to be able to switch and separate these different light waves so that the messages arrives at the correct receiver. Light wavelength-selective filters and switches are an interesting means of accomplishing this. The present research project is directed toward understanding the physical processes and chemical compositions that make rare earth containing silicate glasses a class of materials in which to fabricate these switches and filters. The results of this research are expected to provide a "road map" for tailoring the glass chemistry and processing to produce efficient devices of this kind. One of the expected outcome of this work will be a prototype wavelength. ***